ED-NSF/ERI Workshops

This project will support two workshop for the National Science Foundation and the Department of Education. The workshops are being conducted to consult with researchers and practitioners in developing long-term strategies and white papers. The workshop will also assist the agencies in contemplating long-term program/funding level strategy.